KDI: Cross-Modal Analysis of Signal and Sense: Multimedia Corpora and Computational Tools for Gesture, Speech, and Gaze Research

Human gesture, speech, and gaze (GSG) function as an integrated whole, no
part of which may be fully understood in isolation. Since they are not
subservient to each other, but spring from a 'deeper' semantic source in
the human mind, they provide a glimpse into the function of the mind in the
production of human communication. Our multi-institutional
cross-disciplinary team will study this GSG nexus in two major sets of
activities. First, there is a technological focus on the computation,
extraction, representation and access to the communicative entities
contained in multi-view video of human communication experiments. This
involves video analysis, speech/signal processing, and web-based multimedia
databases. Second, we have assembled six science projects, two each in
psycholinguistics/anthropological linguistics, speech and natural language
understanding, and neuropathology. The technology research enables the
science projects, which in turn focus the technology research. In brief
the six projects investigate: 1. How multiple communication modalities may
be fused to provide cogent discourse structure, 2. How spatial expressions
function in languages (like Tzotzil in Chiapas Mexico) that apply
'absolute' orienting strategies, 3. How GSG may be combined to yield more
accurate speech and natural language processing, 4. How GSG may be used to
locate, and understand discourse disfluencies, 5. How GSG synchronies vary
in Parkinson's disease patients, and 6. How aphasia interacts with
language and culture.